Measurement of 222Rn and 210Pb in the Pacific Stratus/SulfurInvestigation (PSI) to Establish the Marine Provenance of Enhanced CCN Abundances

The PI will conduct airborne measurements of 222Rn as part of the Pacific Stratus/Sulfur Investigation. The radionuclide measurements will compliment measurements made by the NASA/Ames tracking sun photometer, the NOAA/PMEL sulfur gas chromatograph and the NOAA aerosol size distribution probes to investigate the postulated link between marine dimethyl sulfide emissions and the reflective properties of marine stratus clouds. Altitude profiles will be conducted to locate layers of enhanced particle abundance or thin cloud, and samples for radionuclide and sulfur gas analysis will be collected in and between the layers. Source origins and degree of recent aerosol scavenging and free troposphere - boundary layer exchange will be assessed in conjunction with measurements made on other PSI platforms, meteorological analyses, and satellite observations.